Statistical-Quantitative Methods in the Social Sciences

A computer laboratory designed to supplement instruction in the social sciences is being created. The students are being exposed to the statistical and other quantitative data analysis techniques applicable in their major. The students are being given opportunities or hands-on experience in class as well as in independent studies computer-based research experiences. With the use of the Micro Vax II in a networking arrangement as well as SPSSX and BMDP Statistics software the students are expanding their experience in computer-based analysis. The mini- computer is being used in advanced statistics classes as well as with large data sets in political science, economics, and sociology. Since many of the students continue on to graduate school there is a need for increasing the statistical and other quantitative skills as well as the ability to generate such data on the computers.